Digital Measurements of Power System Quantities in Non-Sinusoidal Condition

This is a Career Advancement award in the Research Opportunities for Women (ROW) program. The advancement and wide applications of electronic devices and microprocessors in many areas significantly contribute to electrical waveform distortion. This created the need for basic research on principles and methods of instrumentations of electrical quantities in non-sinusoidal situations. Also, there are many situations in large scale systems, where a disturbance cause fluctuation in many fundamental frequency and nominal voltage. The measurement of such fluctuations from highly distorted waveforms will certainly contribute to the fast detection of the disturbance. Therefore, this proposal includes three major tasks to be achieved. First, to establish the proper definition of the quantities to be measured in non-sinusoidal situations. The confusion and discrepancy of distorted power, active power, reactive power, and power factor in non-sinusoidal waveforms will be addressed in a scientific and experimental manner. The second task will be concerned with the development of microprocessor-based optimal estimation techniques for the measurement of: waveform effective value, fundamental component RMS value, time domain active, reactive, apparent and distorted power. Also the development of microprocessor based techniques for recursive estimation of frequency deviation will be investigated. The third task deals with a hardware implementation, a laboratory testing and an investigation of the measurement technique for active, reactive, and apparent power. The errors in each approach will be evaluated.